Flare Genesis Experiment

This award provides funding for one year of data analysis of the solar images produced by the Flare Genesis Experiment telescope during a long-duration balloon flight over Antarctica in early 2000, near the peak of solar activity for this solar cycle. The telescope produced many thousands of images and maps of solar magnetic fields with unprecedented resolution. It is expected that the detailed analysis of the data will improve understanding of how energy stored in solar magnetic fields is converted to high temperatures and velocities associated with solar activity.

This project is jointly supported by NASA, NSF/OPP and NSF/ATM.